RUI: Observational Cosmology in the Near Infrared

This project is part of a collaborative effort between Haverford College, Michigan State University, and the University of Wyoming for extragalactic observations with near infrared imaging cameras. Haverford College has an outstanding reputation for involving undergraduate students in front line research, and has produced astronomers out of all proportion to its size. This award will enable them to participate in the development of two modern infrared CCD cameras, and to utilize these devices in studies of the formation of galaxies in the early universe.